Tools for the Development of Memory-Efficient Sparse Linear Solvers

Tools for the Development of Memory-Efficient Sparse Linear Solvers

Recent advances in both hardware and algorithm development have increased
the effect of memory access on the runtime of large scale linear algebra
applications. The PI proposes to create tools that will provide the code
developer with information about memory costs of codes in preparation
as well as with software building blocks designed to lessen those costs.
First, a framework for memory-efficient implementation of the sequences of
sparse Basic Linear Algebra Subprograms that typically constitute a sparse
linear solver will be provided. Second, a collection of metrics for the
prediction of memory usage of linear algebra software will be developed.
Working from those metrics, a tool to automate the prediction process
will be built. Finally, keeping in mind that the performance of a code
ultimately depends on how it compiles, a comprehensive study of compilers
and the performance of the executables they produce will be carried out.